Planning A Minority Institution CISE II Program Grant Proposal

The faculty of the Computer Science Department of The University of Texas at El Paso will develop a five-year plan for participation in the NSF CISE Institutional Infrastructure Program for minority institutions. The Computer Science Department serves a primarily Hispanic minority undergraduate population. Although they presently provide a sound, basic education in computer science, they intend to implement a plan to further improve the quality of the education provided at UTEP and to encourage students to pursue their education through the master's degree level. The faculty of the Computer Science Department are highly active researchers and have received national recognition for their work. This is particularly true in the area of non-monotonic reasoning, a topic which is rapidly becoming one of the most important and far- reaching in computer science. They intend to develop a plan to extend their theoretical work in this area, to implement the algorithms being developed, and to apply these results to a wide range of problems in computer science.